The Scientific Method: Poems of Antarctic Inquiry & Research

The poet will work with and observe science teams in Antarctica to compile impressions and information for use in writing original works of poetry and related media destined for publication in existing poetry media in the United States.